Exploring Enabling Technologies, Best Practice Science Pedagogy, and Bilingual/ESL Strategies for the Teaching of Science to Elementary Deaf and Hearing Bilingual Students

This proposal addresses a strategy that is creative, well constructed, and moving into a
new area of research. The concept of identifying effective strategies to enhance
learning for two groups of traditionally underrepresented students - those who are deaf
and those who have English as a second language - is an area of focus worthy of
exploration.
Reviewers encourage the researchers to think about other disabilities as they create
materials and would include a broader dissemination to include journals/conference
presentations outside of the ESL and deaf service areas. More clarification would have
been helpful regarding the "best practices" that are to be implemented. Some concern
was expressed about whether the level of staffing was adequate.
Overall, the proposal builds on solid previous work by experienced researchers and is
well thought out. The project may provide a new model to partner programs serving two
different groups of underrepresented students!